Molecular and genetic analysis of sex determination in Drosophila

9305074 Salz How the sex of Drosophila melanogaster is determined is as well understood as is sex determination in any organism. However, even in this system how such determination is regulated remains a mystery. We are concentrating on the identification and characterization of genes required for the maintenance of the ON/OFF activity state of the binary switch gene Sex-lethal (Sxl). Maintenance of Sxl is regulated by "exon-skipping", a type of alternative RNA splicing. Only in females does the processed transcription product yield a functional protein. We are focusing on the analysis of snf, a sex determination gene which is utilized to establish the female-specific splicing pattern of Slx. We have recently found that snf has homology to the mammalian snRNP proteins U1A and U2B", suggesting that the snf gene product is an integral component of the machinery required for splice site choice. We will 1) continue our molecular characterization of the snf locus 2) determine if the SNF protein is nuclear and/or cytoplasmic as well as whether it is associated with nascent transcripts on polytene chromosomes 3) determine whether the extant mutations are simple loss of function mutations or have aberrant functions by localizing the molecular lesions associated with the extant snf mutations and examine the phenotypic consequences of multiple copies of the mutant gene 4) determine whether snf is likely to be an essential general-splicing factor, an essential sex-specific splicing factor or an non-essential "facilitator" of splicing, by generating and characterizing a small deficiency of the locus 5)determine whether the human U1A protein and/or the human U2B" protein is functionally equivalent to snf by expressing the human genes in Drosophila and determine whether either can complement snf mutations 6) determine whether the differences between the RNA Recognition motifs (RRM) of U1A. U2B" and SNF are functionally significant. These structure/function studies should b e particularly informative in light of the extensive in vitro structure/function studies that have been carried out on the human U1A and U2B" proteins. %%% By identifying and characterizing both general and sex-specific genes required for maintenance of Sxl activity, we will gain insights into the mechanism regulating sex-specific splicing. Moreover, our analysis will have broader implications for the understanding of the mechanisms regulating RNA splicing in general since little is known about how splice site choices are made. ***